North Pacific Intermediate and Deep Circulation

This proposal is for analyzing new and old data on the North Pacific to determine water masses and the circulation in the intermediate and deep water. This will be the subject of Ms. Ilse Hamann Ph.D. thesis. Two new zonal sections were run across the North Pacific in 1985, at 24 and 47 N. The measured properties will be compared with historical data, and a multitracer analysis technique will be used to quantify the water mass distributions.